2003-2004 Albany Group Theory Conferences

Abstract

Award: DMS-0314797
Principal Investigator: Edward C. Turner

This award provides partial support for the featured speakers and
for some graduate students to attend the 2003 and 2004 Albany
Group Theory Conferences. The conferences will be the thirteenth
and fourteenth in a series of conferences dedicated to the
interplay between group theory and topology. There will be seven
main speakers, each of whom will give a one hour talk. In
addition, there will be 20 - 25 short talks by participants. The
conference will be held at the Rensselaerville Conference Center
in October of 2003 and 2004. Further information is available at
http://nyjm.albany.edu/~ted/03conf.html.

Groups are mathematical objects that abstract the essential
properties from the collection of all symmetries of a geometric
object (for example, think of all eight symmetries of a square,
which can be composed of rotations about the center and of
reflections about a diagonal). We can often turn this process of
abstraction around and treat groups as geometric objects in their
own right, with consequences for problems that originate in
algebra, topology, combinatorics, and computability.